Investigation of Electrical and Magnetic Properties of FreshConcrete

The research is directed onto the influence of electrical and magnetic fields on fresh concrete. The first focus of the research is on the performance of concrete which has been exposed to an electric field while still in the plastic state. The second part of the research is directed to the magnetic properties of concrete in its fluid state. This project is one supported under the Creativity Awards for Engineering Students.